Two Cultures: Bridging 'Pure' and Applied Geology

The research component of this project is designed to develop an interdisciplinary approach to creating geologic hazards potential maps in areas at high risk for slope failure. The study will integrate geological observations, geotechnical materials testing, and geographic information systems (GIC) analysis of major paleo- landslides within the Huntsville, Alabama city limits. Concerns about the potential for catastrophic slope failures in this and other parts of the southeastern US has been heightened by recent delineation of a belt of active seismicity in Eastern Tennessee. Meaningful analysis of the potential risks will require both the short-term, pragmatic considerations of geotechnical engineering and longer-term geologic understanding of natural systems. The interactive activities will promote dialogue between geologists and geological engineers. Activities include supervision of Earth- systems based geology laboratory, already successfully implemented at the investigator's home institution; leading a graduate course on pedagogical strategies for geology teaching assistants; and conducting a graduate seminar on a topic of mutual interest to geologists and geological engineers.